Development of a Comprehensive Robust Control Theory and Design Methodology for Power Conversion Systems

The work described in this proposal will result in the development of a comprehensive robust control theory and design methodology for power conversion systems. This will be the first time that robust control techniques will be applied techniques will be applied to feedback design of power conversion systems with the resulting benefits of more reliable, less costly converter designs. The work is broadly divided into the two related areas of analysis and synthesis of power conversion feedback systems. For analysis we will identify and implement algorithms for the computation of u, the structured singular value. This will then allow the assessment of robust stability and robust performance; that is, determination will be made whether stability and performance criteria are satisfied despite variations or uncertainties in operating conditions/parameters away from the nominal. Furthermore, the work will result in the development of robust controller design methodologies for power conversion systems. These methodologies will be given both single output converters and for multi-output and multiple interconnected converter systems.